CAREER: Scalar Transport at the Sediment Water Interface in Coastal Benthic Boundary Layers: Advancing Nearshore Processes Research and Education in Puerto Rico

This project provides an integrated approach to advance nearshore processes research and education on the island of Puerto Rico. It focuses on advancing our understanding of exchange processes of water and other constituents between the seabed and the overlying water under the action of waves. A systematic progression of experiments on flat, rippled and transitioning rippled bed regimes will be carried out using non-invasive laser-based techniques to obtain detailed observations of concentration and velocity fields with unprecedented resolution. A new collaboration with a numerical modeling group will inform the experiments, provide valuable data for cross-validation, and extend the research into more complex physics. The research will provide parameterizations describing ecological, biogeochemical and microbiological processes in the coastal benthic boundary layer and it will advance women and minorities in the fields of ocean sciences and engineering. The research program is integrated into a robust education plan through a variety of efforts, including the creation of a new course and enhancement of existing courses with unprecedented flow visualization and quantification techniques; the development of interactive modules on beach evolution and contamination; and the inception of a Graduate Fellowship Workshop series to coach students during the fellowship application process. This project will provide essential resources to advance the next generation of ocean scientists and engineers in Puerto Rico, and provide valuable role models for women and minorities.

This project examines the combined effect of complex roughness scales and spatially varying mass sources on scalar transport across the sediment-water interface under oscillating wave motion. It builds upon previous findings that demonstrate a high variability of momentum fluxes across the ripple wavelengths, and explores the effect of preferential organization of solutes on the overall mass exchange. Through a combination of detailed laboratory experiments (using PIV and PLIF), robust physics-based techniques for data reduction, and a new numerical modeling collaboration, this project will provide fundamental knowledge on the complex intra-ripple mixing structure resulting from a combination of unsteady hydrodynamic forcing, bedform-induced coherent motions, and nonuniform mass sources. Grounded on the PI's expertise in turbulent oscillatory flow over mobile rippled beds, this study has the potential to profoundly impact the way current deterministic models parameterize mass transport in coastal benthic boundary layers including contaminants, nutrients, and biogeochemical processes. The proposed research program will be integrated into a strong educational plan through the development of new and enhanced courses, outreach activities, and fellowship writing workshops.